Digital Government: E-Government: Human-Centered Systems for Business Services

EIA-9983468
Adams, Nabil R.
Rutgers University

Digital Government: E-Government: Human-Centered Systems for Business Services

This grant will support research into distributed workflows and dynamic workflow specification, data interoperability, and provision of E-government services and creation of State to Business relationships through a single electronic interface. The research will include the State of New Jersey as a collaborator, in an application focused on guiding the user through the process of approval, permitting and regulatory compliance. Researchers from Columbia University and the University of Maryland at Baltimore County will participate in the team also.